Electronic Structure of Condensed Matter

9802373 Ceperley The long range goal of this research is to develop practical, efficient theoretical methods to accurately predict the properties of many-electron systems. Theoretical methods and computational algorithms are being generated that can be applied to important idealized systems, such as the homogeneous electron gas, as well as to realistic problems in atoms, molecules, and condensed matter. The approach taken is a combination of quantum Monte Carlo (QMC) simulations and density functional theory (DFT). QMC can provide exact results for some many-body problems and the range of problems for which this method can be applied is being extended. DFT is the only method feasible for large-scale simulations of real systems. Research objectives include the development of QMC methods with emphasis on the improvement of the nodal surfaces for fermion wavefunctions which is the limiting factor in the accuracy of the algorithms. A method has been developed to dynamically optimize the nodal surface and will be applied to many-electron systems. Work will also continue to calculate forces with QMC methods. First applications will be for forces between protons in an electron gas. Applications of QMC methods to physical problems will include nanoscale quantum devices and lower dimensional systems; electron-hole plasmas where finite-temperature techniques will be used to srudy the formation of excitons, bi-excitons, and the superconducting state; and hydrogen impurities in metals, which is a test of DFT and an important problem in materials science. New work on the phases of hydrogen at high pressure will focus on prediction of infrared activity using the Berry's phase formulation. Also to be developed will be general theoretical methods for studying dielectric polarization in correlated systems. The first test of the new ideas are being implemented in lattice models and methods will be developed for real systems. Many- body calculations will be used to test approximate DFT functionals and to derive new forms. Long term challenges are to develop algorithms to solve the famous "sign problem" which is a limiting factor in application of Monte Carlo methods to fermions and dynamics; to develop robust "order-N' linear scaling methods that go beyond approximate DFT methods; and to apply these methods to outstanding materials problems. %%% The long range goal of this research is to develop practical, efficient theoretical methods to accurately predict the properties of many-electron systems. Theoretical methods and computational algorithms are being generated that can be applied to important idealized systems, such as the homogeneous electron gas, as well as to realistic problems in atoms, molecules, and condensed matter. Long term challenges are to develop algorithms to solve the famous "sign problem" which is a limiting factor in application of Monte Carlo methods to fermions and dynamics; to develop robust "order-N' linear scaling methods that go beyond approximate DFT methods; and to apply these methods to outstanding materials problems. ***